New York State Science Assessment Project

This project will develop innovative test questions, statewide examinations and teacher resources to help ensure that specific science learning outcomes are achieved; this for grades four and eight and for high school earth science and biology. Science assessment manuals will be developed to assist teachers in preparing students for more challenging state examinations and to encourage more thoughtful student evaluation. Wide dissemination of the results of this activity are planned.